Moduli Spaces and Differential Equations

Proposal Number DMS - 0205643 Investigator Emma Previato [email]
Moduli spaces and differential equations

This project combines projective geometry and differential
algebra. For a few decades now, moduli spaces of vector bundles
over curves have been prominent in mathematical physics. A few
interrelated open problems are the object of this research.
In projective space, models of moduli of vector bundles still don't have
explicit description, by equations or by classification. The generalized
theta functions (sections of higher-rank vector bundles) are not developed
to the point that one can describe flows of completely integrable
hierarchies or perform the necessary calculations of quantum field theory
(partition function, e.g.) Finally, flows of commutative rings
of partial differential operators (generalized KP flows) have not been
described explicitly. In the proposed work: on the projective-geometry side,
equations for moduli spaces of higher-rank bundles and dimensions of
Brill-Noether loci will be calculated by methods of representation theory
and correspondences between Grassmannians. On the analytic side,
differential equations for the Kleinian functions (which generalize the
Weierstrass p-function) will be derived and applied to integrate new
Hamiltonian systems and the generalized KP flows. A theme that runs through
the proposed research is the classical problem of reduction: Weierstrass' students
Koenigsberger and Kowalevski, respectively, characterized the abelian integrals
of genus 2, 3 respectively, that reduce with "multiplicity" 2 to an
elliptic integral; since then, very little was found in general
(e.g., higher genus or multiplicity). Progress on this problem
is now under way, partly due to results that revisit the Kleinian
functions, and partly to the aid of computer algebra. The problem of reduction is linked
with the problem of curves with automorphisms, and the project includes applications of
the results to differential Galois theory, monodromy of ordinary differential equations,
and decoding algorithms for algebraic (Goppa) codes.

Elliptic functions have an "unreasonable effectiveness",to borrow E.P. Wigner's phrase.
They occur when modeling harmonic oscillators, shooting billiards, measuring the
amplitude of ocean waves, computing the partition functions of quantum field theory.
The word "elliptic" refers to the number of periods of the functions
(one over the real, two over the complex numbers). Theta functions are the multi-periodic
analog of elliptic functions. Although Old Masters such as Klein, H.F. Baker and O. Bolza,
obtained equations for genus-2 (4 complex periods) theta functions, most
properties of theta functions are still inexplicit, including their dependence on the
period lattice. New impetus in the study of such functions came from the theory of
integrable PDEs, such as the Kadomtsev-Petviashvili equation, and the attendant
algebraically completely integrable systems that have been intensively studied since the
1970s. This project will combine projective geometry and differential algebra to identify
differential equations satisfied by the (Kleinian) theta functions, and apply them to
find exact solutions of Hamiltonian systems and non-linear PDEs.
At the same time the project will pursue the other major,
"non-abelian" generalization of theta functions, by embedding moduli spaces into projective
space. Theta functions that can be reduced to expressions in elliptic functions will be
characterized geometrically and used in effective decoding algorithms.